Research Initiation: Knowledge Representation for the Design and Analysis of Mechanical Assemblies

This project studies the mechanical design process with the aim of developing a design environment where functional and structural knowledge can be used to create and edit detailed geometry. This involves the study of typical design problems to identify natural operations on designs, the use of data representation methods from the fields of artificial intelligence and geometric modelling as a basis for the development of interactive methods for the generation of designs from functional descriptions.